Calculus: Restructuring and Integration with Computing

The calculus curriculum is being restructured by integrating into the syllabus student use of a personal computer as a working tool. A substantial body of new courseware is being created that will enable the students to use a personal computer as a regular part of their homework to explore, analyze, or verify the central concepts of the calculus. Students are expected to write some of their own software and/or to modify existing software as an integral part of the course. The course materials are being substantially restructured in order to incorporate the advantages which the presence of the computer affords. The ultimate goal is to produce a new computer-based calculus text.